Theory and Pragmatics of Optimal Reduction: Logic, Linear Naming, and Programming Language Design

This research program investigates the theory and pragmatics of naming and
sharing data and computation threads, using principles of optimal
evaluation and linear logic. These tools explicitly highlight the
operations of copying and discarding that are essential in procedure
calling protocols.

We will analyze the algorithmics of optimal evaluation, the complexity of
box management, and the evaluation pragmatics for languages with explicit
control. Also included in the research agenda are intensional full
abstraction theorems, where the meaning of a term includes operational
information about how computations are shared, and the use of context
semantics as a flow analysis tool, where the so-called "geometry of
interaction" can give information about how procedures access their
arguments. Finally, we want to give a refined explanation of the bus
system of graph reduction in terms of linear logic, in the hope of giving a
new categorical rendition of the incremental computation in optimal
evaluation.